IRAC Support of Indonesian Primate Breeding and ConservationProgram

An interagency transfer of funds by the NSF to the National Institutes of Health will provide partial support for the Indonesian Primate Breeding and Conservation Program. Indonesia is presently one of the two remaining countries in the world that is exporting cynomolgus monkeys for use in biomedical research. In addition, Indonesia is the only source country for pig-tailed macaques and Celebes black apes. While support for development of the natural habitat breeding program will not satisfy U. S. needs for the cynomolgus monkey by itself, it does strengthen future access to this and the other species that occur naturally in Indonesian habitats. The natural habitat breeding project provides a good potential model and testing ground for similar projects elsewhere in the tropical and semi-tropical areas of the world where non-human primates are found. A success in Indonesia could help future efforts to develop future projects in the Philippines, Malaysiam, Thailand, and perhaps India. Cynomolgus monkeys are a model primate used in several NSF supported projects and the continued availability of this primate is essential to several biological research programs. This interagency transfer will allow NSF support as a member of the Interagency Research Animal Committee for the development of a natural habitat breeding project in Indonesia to produce retrovirus free cynomolgus monkeys for biomedical research. An addition project objective is to make a substantive contribution to the achievement of broader conservation goals to assure more dependable primate export.